Theoretical Advanced Study Institute

This grant provides three years of continued funding for the Theoretical Advanced Study Institute (TASI) at the University of Colorado in Boulder, CO, under the direction of Professors Ethan Neil and Oliver deWolfe. Each year’s TASI is a one-month long Summer Institute, held in June, for advanced graduate students working in the field of theoretical high-energy physics. The aim of TASI is to expose advanced graduate students to a much broader range of ideas and topics than they normally experience in their home institutions while working on their dissertation topics. TASI has been held every summer since 1984, and has been held on the UC Boulder campus since 1989. A nationally-distributed Scientific Advisory Board selects a topic and recruits scientific organizers, who arrange the program for that year. In a typical year about sixty junior participants hear approximately sixty presentations from approximately twenty cutting-edge established researchers. TASI is the most successful program of its kind in the world, and past students of TASI are found at major research institutions (both in and outside high-energy physics). As such, TASI advances the national interest by promoting the progress of science and the training of junior scientists. Further broader impacts associated with TASI include the TASI videos, lecture notes, and written proceedings, all of which provide the same benefits more broadly to other members of the high-energy physics community and beyond. A Public Lecture is also part of TASI's annual program, and attracts a large audience from the community.

Professors Ethan Neil and Oliver de Wolfe of the University of Colorado at Boulder are responsible for TASI's local infrastructure. As such, they oversee annual TASI operations, maintain the TASI web site, make and distribute the annual TASI poster, collect applications, assist in the admission process, organize housing for junior and senior participants, secure the lecture venue, record the presentations, and allocate participant support costs.